Climatic Modulation of Indo-Pacific Transport of Thermocline Waters

9314192 Stott The author hypothesizes, based on preliminary data, that advection of thermocline water from the Pacific to the Indian Ocean increased some time between 13 Ka and 9 Ka. If the older date is correct, the increase may have contributed to changes in the North Atlantic. He proposes to generate further data to constrain this hypothesis, including the use of new variables such as trace metals and 14 C dating of deep and shallow dwelling foraminifera; specific predictions will be tested for each of these data types. ***